Model Correction Using Experimental Data

This research addresses the problem of adjusting, or correcting, the analytical model of a structure to agree with experimentally measured data. Typically, in vibration modeling, models determined analytically (i.e., by the finite element analysis (FEA) method) are compared with experimental modal analysis (EMA) data. Numerous incompatibilities generally exist between the analytical models and the experimentally obtained data, and the view is taken that the analytical model is in error and must be refined and corrected based on the experimental data. This research recognizes that the model correction problem is similar to the statement of the eigenstructure assignment problem and pole placement problem common to control theory. The intent here is to utilize the control theory algorithms to solve the model correction problem by adjusting the algorithms to take advantage of differences between EMA and FEA data. The theory developed will be subjected to verification through tests on a number of laboratory structures.